SBIR Phase I: Self Assembled Nanocrystal Thin Film Transistor

This Phase I Small Business Innovation Research project is to design and fabricate Nanocrystal Thin Film Transistor (NC-TFT) devices for flexible display application, using molecular level self-assembly performed at room temperature. Specifically, this project will combine advances in semiconductive nanocrystals, metal and oxide nanoclusters, with electrostatic self-assembly (ESA) processes, to enable large-area, low-cost and integrated device manufacturing on flexible substrates.

The successful completion of this research will enable a wide variety of flexible display applications for military and consumer use. The simple and low-cost ESA manufacturing process may be used for the rapid fabrication of ESA-formed patterned NC-TFT devices for both low-cost and high performance applications.